US-Czech Joint Fund Research on Mathematical Logic and Complexity Theory

This US-Czech Joint Fund mathematics research project between Dr. Jan Krajiek, Mathematical Institute, Czech Academy of Sciences and Dr. Samuel Buss, University of California-San Diego, concerns the following topics: bounded arithmetic, complexity theory and complexity of propositional and first order proof systems. The researchers see these topics as closely related in aims and techniques and believe the major problems in all three areas have the same character as the famous "P versus NP" problem (whether there is a propositional proof system in which every tautology has a proof whose length is polynomial in the length of the tautology.) In their investigation of elicit connections, the researchers will study the following problems: finite axiomatizability of bounded arithmetic, lower bounds to the depth and to the size of Boolean circuits, bounds on the length of Frege, extended Frege and first-order proofs. Results are expected to help determine whether some methods developed purely for logic can be applied to problems in complexity theory. This research in mathematics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the U.S. and Czech Republic to combine complementary talents and pool research resources in areas of strong mutual interest and competence. Funds for the project are awarded through the US-Czech Joint Fund, Prague, in accordance with established guidelines.